Workshop on Frontiers of Statistics: Nonparametric Modeling of Complex Data

Prop ID: DMS-0531839
PI: Fan, Jianqing
Institution: Princeton University
Title: Workshop on Frontiers of Statistics: Nonparametric Modeling of Complex Data

This is an extremely well conceived worshop that will bring together some of the
The frontiers of statistics are dynamic and vibrant. The aim of this
proposal is to organize a workshop on the frontiers of statistics that
involve large and complex data. The conference will focus on data-analytic
nonparametric techniques in diverse fields of disciplines such as
computational biology, financial econometrics, machine learning, and
industrial engineering. It will also include various topics on
statistical theory and methods. A distinguished feature of the conference
is that it addresses emerging statistical problems that arise from various
frontiers of science. It will be very helpful for shaping the future
directions of statistical research.

The purpose of this proposal is to bring together top and junior
researchers to define and expand these research frontiers of statistics.
The workshop provides a focal venue for top and junior researchers to
gather, interact and present their new research findings, to discuss and
outline emerging problems in their fields, and to lay the groundwork for
fruitful future collaborations. Moreover, it will provide an overview for
graduate students who are interested in seeking for an interesting area to
work. The workshop focuses on various nonparametric statistical problems
from various frontiers of science and engineering such as computational
biology, financial econometrics, machine learning, and industrial
engineering. It will be very helpful for shaping the future directions of
statistical research that addresses problems of high societal impact.